Mathematical Sciences: Stochastic Processes

Professor Bass will work on problems in three areas of stochastic processes: the construction and properties of Brownian motion on fractals; properties of set-indexed and multiparameter processes; and probabilistic approaches to singular integrals. The theory of stochastic processes is part of the larger category of probability theory. Generally speaking, this subfield deals with changes in a system that occur over time in probabilistic fashion. Professor Bass is recognized by his peers as one of the stronger young probabilists working in this subfield. The results of his research will be eagerly awaited.